High Performance Flexible Adaptive Filtering Peripheral for Digital Communication System

This project aims to design and build a generic adaptive filtering module for digital communication systems. The design is based on the multi-channel fast Recursive Least Squares (RLS) adaptive filtering algorithm. The design includes echo cancellation, equalization, automatic gain control, and timing and carrier recovery performed digitally on single or multiple digital signal processors. Fixed and floating point implementations are developed and the finite precision issues involved in mapping these algorithms to finite wordlength digital signal processors (DSPs) are addressed. Real time and high level simulations of these algorithms will be performed over realistic channels. These include fading in mobile digital radio and voice-band channels with various impairments. Present digital communication systems based on current adaptive filtering technology fail in worst case channels for voice-band modems and in the case of mobile communication systems, during rapid fading. Higher speed communication over channels with more noise and distortion will become feasible by employing these new algorithms. Further, the all digital DSP-based design ensures manufacturability with greater reliability and little or no time consuming manual adjustments.***